Study of Hadronization and the Quark-Gluon Plasma in the Early Universe (Physics)

This Research Planning grant is directed at preparing a proposal for studies of Hadronization and Quark-Gluon Plasma in the Early Universe. Using the standard model of the early universe as a working, semi-empirical theoretical basis, the purpose of the research is to consider the implications of this model for the epoch shortly after the initial explosion.